Shear-Wave Splitting and Tectonics from Teleseismic Arrivals at Seismic Stations in Western North America

This research is to measure shear-wave splitting in western North America to infer alignment of olivine in the mantle and associated mantle flow patterns. These patterns have implications on lithospheric deformation, absolute plate motion and associated earthquake hazards. In this continuation of an ongoing study, an improvement in the ability to handle two anisotropic layers will be made by inverting a suite of seismograms directly for the anisotropic parameters. The derived thicknesses can then be compared with those independently determined by means of teleseismic P and S time residuals. This research is a component of the National Earthquake Hazard Reduction Program.